Travel Support for Participants in the 5th International Symposium of the ESIQIE, National Polytechnic Institute, Mexico City, May 29 - 31, 2002

This grant will provide travel support for participants in the 5th International Symposium of the ESIQIE of National Polytechnic Institute in Mexico City, May 29 - 31, 2002.

The topics covered in the symposium are: environmental engineering, energy, process development, thermodynamics, supercritical fluids, catalysis and reactor engineering, polymers, process simulation, gas processing, petroleum refining, petrochemicals, optimization and control, quality, productivity, metallurgical and material processing and materials characterization. Plenary lectures deal with catalysis, thermodynamics, reaction engineering, data banks, process simulation, metallurgical processes and materials characterization. In addition to technical sessions, the symposium contains an industrial forum and cultural festival.

Immediately preceding the symposium, international participants will present a series of short courses. The topics of these courses are: process simulation, experimental and theoretical thermodynamics, reaction engineering and catalysis.